Wall Turbulence

A combined modeling and experimental program of research will be conducted on various topics relevant to near-wall turbulence. The primary tools are Particle Imaging Velocimetry and Direct Numerical Simulation. Topics include high Reynolds number channel flow, flow over a wavy wall, flow oscillatory in time, and flow with polymer injection for drag reduction. Wall shear stress in separating and reversing flows will be measured with electrochemical methods. Complex turbulent flows are relevant to a very broad range of industrial processes in Mechanical and Chemical engineering, and there is still a low degree of reliability in predicting their characteristics due to the complexity of turbulence.